Computer Laboratory For Science Education

The goals of this project are to improve student access to computer-based techniques for data collection, analysis, and modeling for majors and non-majors in biology, chemistry, and physics laboratories. The computer facilities are also used by upper-level students conducting laboratory research, and in the development of new computer-based curriculum materials for classes in physiology, ecology, and marine biology.